Mathematical Sciences: Nonlinear Partial Differential Equations & Their Applications to Evolving Surfaces, Phase Transitions & Stochastic Control

DMS 9817525

Soner

This proposal is on nonlinear analysis with an emphasis on applied mathematics
problems in material science and financial mathematics. Particular applications
in material science include modeling grain boundaries, super cooled solidification,
and superconductivity. In financial mathematics, applications include pricing
contingent claims in incomplete markets and consumption-investment problems.
As an analytical tool, the PI proposes to develop a theory of bounded variation
to suitable for vector-valued functions. This theory of functions of type BnV
may have a wide impact in real analysis. In financial mathematics, the PI will
look at problems with portfolio constraints, transaction costs, and models with
stocastic volatility.

The sophisticated mathematical models arising in the study of new materials and
in financial transactions require new methods of mathematics to show that the
models are consistent with reality and give reasonable results. The PI will be
investigating new methods of analysis to apply to such problems as superconducting
materials and financial models of derivative transactions